ROW: Metamorphism of Pelitic Schists in the Baltimore Area-Variation in Metamorphic Conditions on a Regional and Local Scale

This investigation will contribute to better understanding of the metamorphic and geologic history of a portion of the Appalachian Piedmont region in the Baltimore area. Pressures and temperatures will be estimated for metamorphosed sedimentary rocks using well-calibrated mineral equilibria reactions and these results applied to determine the burial and subsequent uplift history of these rocks. The results will elucidate the tectonic history of the area. In addition varied mineral assemblages in rocks having the same metamorphic history attest to the operation of other factors, namely differential compositions of fluids percolating through these rocks. The role of fluid and bulk rock compositions controlling the observed mineral assemblages will be determined, again using appropriate thermochemical computations.